Collaborative Research: GPS Crustal Deformation Monitoring in China

9903777
Hager

The investigators plan to measure and interpret crustal deformation in China using GPS data. They will collaborate with Chinese scientists on their project "Crustal Motion Observation Network of China", sharing U.S. expertise in network design, data processing, analysis, and interpretation. During the upcoming year the investigators will jointly analyze and interpret the Chinese data collected in 1998 and 1999, to assess the network monument stability, data quality, and approaches to best analyze the data. Team members will visit the participant institutions in China to discuss and coordinate future research efforts to strengthen the Crustal Motion Observation Network of China project at both the regional and national levels. At the time of the US-China Geodynamics Workshop to be held later this year, the investigators will jointly propose with the Chinese colleagues a fully integrated plan for GPS data collection and analysis in China for the next 4 years.